Proceedings for St. Cloud Conference on Women in Math/Science

Abstract: This project provides support for printing and distributing 750 additional copies of the Proceedings of the St. Cloud Conference on Women in Mathematics and Science held in November of 1989. That conference, supported by other than NSF funds, has become widely known as one of the most productive conferences held on this topic. The original grant only provided for publishing and distributing the Proceedings to the participants and a few others.